Efficient Triangulations of Three-Manifolds

DMS-0204707
William H. Jaco

This project involves the development and use of efficient
triangulations in the study and understanding of 3--manifolds. A
triangulation of a 3-manifold determines a class of surfaces in the
3--manifold called normal surfaces. A fundamental observation is that
in most cases when a 3--manifold contains an interesting surface, then for
any triangulation of the 3--manifold the same interesting feature is
exhibited by a normal surface in the triangulation. This has provided a
powerful method for studying 3-manifolds and solving certain decision
problems. Normal surface theory has, for example, lead to the theoretical
resolution of determining when two 3--manifolds, which contain injective
surfaces, are homeomorphic, to the classification of these same manifolds,
and to the determination of whether a knot in the three-sphere is the
unknot. However, even with the presence of interesting normal surfaces, a
given triangulation may have numerous uninteresting normal surfaces, which
make theoretical arguments quite tedious and computational attempts nearly
impossible. The guiding principle of efficient triangulations is reducing
unnecessary normal surfaces and improving the efficiency of computations
for triangulation based algorithms. They have exhibited remarkable
success in doing this. However, more surprisingly, efficient
triangulations have exposed interesting relations between one-vertex and
ideal triangulations of three-manifolds and new combinatorial structures,
which seem to be intimately related to the topology of the three-manifold.
This project will explore efficient triangulations with particular
emphasis of their application to the Homeomorphism Problem/Classification
Problem for three-manifolds and issues of computational complexity.

Low-dimensional topology brings together many areas of mathematical
research and provides a common ground for interaction and advance across
all of mathematics. It provides a natural geometric model of most physical
phenomena. Research in this area is making significant contribution to
computational geometry and topology and complexity theory. It has
consequences in physics, computer visualization and medical and biological
modeling.